SGER: Workshop August 2004, Tempe, AZ: History, Philosophy, and Social Studies of Science in the Public Realm,

The history, philosophy, and social studies of science too often operate in a vaccum,
separate from the public realms that they study. The policy-making and decision-making
worlds often need the perspectives these fields offer, but may not even know how to
discover the possible connections. We propose a workshop to develop a network of scholars
who will generate a working document that identifies existing research, opportunities, and
challenges for these fields in the public realm. We will also begin communication with
the policy analysts and develop a plan for extending these discpiplinary efforts into the
wider disciplinary and public realms.